Constructive aspects of classical mathematics

The investigator is pursuing two lines of research, relevant to the
general proof-theoretic program of extracting constructive, computational,
and combinatorial information from theories of classical mathematics. The
first involves extending a semantic approach to ordinal analysis to
Kripke-Platek set theory, and extracting combinatorial and computational
principles for the constructible hierarchy from the analysis. The second
involves trying to find sharp conservation results for weak theories of
nonstandard arithmetic, preferably via "natural" interpretations of the
nonstandard theories in the standard ones, and exploring ways in which
ordinary mathematics can be carried out in these frameworks.

Since the beginning of the 20th century, there has been a gradual
divergence between two different ways of thinking about mathematics. On
the one hand, mathematics is viewed as a general investigation into
abstract concepts, many of them involving infinitary objects and
structures. On the other hand, many see mathematics as grounded by
concrete symbolic representations and calculation. One goal of proof
theory is to reconcile these two viewpoints, by finding the concrete,
computational content that is hidden in general forms of abstract
mathematical reasoning. The investigator aims to apply proof-theoretic
methods to the study of theories of nonstandard analysis, and fragments of
set theory.